Gauge Theory, Harmonic Maps to Singular Spaces and Applications to Topology

DMS-0204191 PI: Georgios Daskalopoulos

The PI proposes three projects. In the first, the PI proposes to
study regularity of harmonic maps into the completion of Teichmueller
space. The two main applications are on symplectic Lefschetz pencils
and on superrigidity of lattices in the mapping class group. In the
second project the PI proposes a proof of higher dimensional partial
analogues of the conjectures of Atiyah and Bott on Yang-Mills
equations over Riemann surfaces. These are nontrivial
generalizations to higher dimensions of the PI's previous work on the
connection between Yang-Mills and the theory of holomorphic vector
bundles. Finally in the third project the PI proposes some questions
about harmonic maps from three-dimensional manifolds to trees which
generalize the well-known theory of harmonic maps from surfaces.

The motivation for the first project is to use harmonic maps in order
to understand analytically the results of Kaimanovich-Masur and
Farb-Masur on the superrigidity of lattices of rank at least 2 in the
mapping class group. In the process the PI realized that the methods
should also shed light in the rank one case. The second project
shows that there are still very close connections between the
analysis of the Yang-Mills equations and algebraic geometry. These
connections have been exploited in great detail by several people in
the case of Riemann surfaces but very little is known in higher
dimensions. The PI's work sheds some light in this direction.